Research Initiation: Designing Standard Modules

This award is to develop a set of mathematical programming models and associated heuristics for designing a set of standard modules. These models will give the designer insight on designs that are easier to manufacture and easier to expand when new products are developed. The objective of the models will be to minimize design and production costs while satisfying technological constraints (including quality constraints) and capacity constraints. The research will incorporate both manufacturability and function as goals in product design.